Mathematical Models of Premixed Flames

DMS 9803614

Mathematical Models of Premixed Flames, John K. Bechtold

This work proposes to systmatically derive generalized mathematical
models of premixed flame propagation through a variety of flow
conditions. Asymptotic methods will be employed to extract reduced
models from a complete set of equations governing combustion processes.
Of interest will be to account for flow conditions that are characteristic
of turbulent flows. Specific models will include the following phenomena:
unsteady flame structure, flow fields with concentration and thermal
gradients, and multi-component mixtures. These reduced models possess
a tremendous advantage over the full set of equations in that they
permit direct analysis of salient features characterizing practical
combustion systems. Therefore, it is further proposed that these new
models will be used to analyze simplified flame-flow configurations that
retain some of the essential features of turbulent reacting flows, including
unsteadiness and non-uniformities.

Most practical combustion systems, including internal combustion engines,
rocket engines and incinerators, operate in a turbulent regime. The study
of combustion in these environments provides valuable information on such
important issues as efficiency and emissions. These systems are very
complicated and are governed by huge sets of equations that are too large
to be solved even by the most sophisticated numerical techniques. Scientific
progress in these directions relies on the development of simplified
mathematical models; that is, reduced systems that retain the most essential
features of the combustion process, but that permit direct analysis. The
work proposed here involves the systematic derivation of flame models to
study flame propagation in a wide range of flow conditions, including
time-dependent and non-uniform flows. Of particular interest will be
to calculate burning rates and to identify conditions for which flames
will be extinguished.